REU Site in Mathematics at UIUC

The University of Illinois at Urbana-Champaign will host two 8 week summer programs, for 6 students each over the next 5 years. Topics will include Evolutionary Game Theory (Muncaster), Geometric Group Theory (Whittlesey), Number Theory (Ahlgren, Hildebrand), Harmonic Analysis (Rosenblatt), and Visualization in Virtual Environments (Francis).

Our students join the working environments of faculty mentors, their postdocs, graduate students and collaborators. Students work on individual or small group projects in their mentor's current research area.
We provide tutorials in the required math, in LaTeX and other subject-specific computer packages.
Students learn to search the literature, to give good lectures, and to communicate their solutions in public seminars and clear pre-prints. We coach their expository skills, referee their paper drafts, help the students submit their work to journals when appropriate, and encourage them to give talks at mathematical meetings that include undergraduate research.

We choose students from applicants across the nation. Women, members of under-represented minorities, and students from schools without doctoral programs are especially encouraged to apply. Descriptions of past REU programs can be found at http://www.math.uiuc.edu/REU.